High Performance Internet Access for University of Delware Scientific and Engineering Research

ABSTRACT "High Performance Internet Access for University of Delaware Scientific and Engineering Research" University of Delaware PI: Daniel Grim ANI-9810101 This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in ocean dynamics and atmospheric circulation, modeling of ocean circulation and coastal waves, meteorological and climate analysis, astrophysical modeling, computational fluid dynamics, molecular phusics, internetworking research, natural language and gestural analysis, video-based sign language communications, petaflop supercomputer design, and remote experimental chemical analysis. Collaborating institutions include Drexel University, George Washington University, Cal Tech/JPL, Notre Dame, SUNY Stony Brook, McGill, NASA-Goddard, Georgia Tech, Michigan, Carnegie-Mellon, MIT, UCLA, USC, and Wright-Patterson Air Force Base.